An Integrated Program in Materials Testing

This project involves an updating and upgrading of materials testing facilities through the purchase of an universal testing instrument and associated software. The equipment primarily impacts four courses: Mechanics of Materials, Structural Engineering, Structural Behavior, and Materials of Engineering. Only the first of these courses previously had a materials testing laboratory component; the project instrumentation allowed the addition of this capability to the other three courses.